Oklahoma Louis Stokes Alliance for Minority Participation in Science, Technology, Engineering and Mathematics

The Oklahoma Louis Stokes Alliance for Minority Participation (OK-LSAMP) in Science,
Technology, Engineering and Mathematics (STEM) comprises the three comprehensive research
institutions (Oklahoma State University Oklahoma University and Tulsa University) , six
Regional Universities ( East Central University, Northeastern State University, University
of Central Oklahoma, Northwestern State University Southeastern State University,
Southwestern State University , and Cameron University) and the 1890 Land Grant
institution (Langston University). i
Oklahoma State University is the lead institution; however, the programs will be
coordinated through the graduate schools on the four partner campuses.
The OK-LSAMP program proposes to significantly increase number of targeted students
pursuing entering into graduate programs preferably to earn the doctorate over the next
five years . The goal is to have a minimum of 10% of the available baccalaureate degree
graduates for enrollment and subsequently graduation. We hope to accomplish this through
the following objectives:
* Formation of a strong research experience in their last two undergraduate years with two
full summers of research and two academic years of research activities.
* Full participation in the Graduate School Preparation component as outlined in the Plan
* Institutionalize a graduate education culture within the underrepresented group culture
and environment .
These are the specific objectives that are alliance wide in implementation. Individual
partners have the autonomy to implement these objective according to the structure and
organization of programs on each campus. For example two of the campuses have a McNair
program and they will work in concert with the McNair program.
The specific programs and activities include:
v Weekly meetings in the beginning of each semester to report progress
v Enhanced stipends for students that present research papers and become co-authors
v Mentoring workshops for faculty mentors
v Special teaching workshops for students
v One required Seminar on Scientific Integrity
v Mandatory participation in the annual OK-LSAMP Research Symposium
v All participants must present a research paper at a regional or national meeting
v All alliance participants will take the GRE Prep course